GENI Engineering Activities, Phase 2

This project will provide the Phase 2 systems engineering for the Global Environment for Network
Innovations (GENI) project. GENI, a virtual laboratory for exploring future internet technologies
and protocols at scale, creates major opportunities to understand, innovate and transform
global networks and their interactions with society. Via the flexible and dynamic deployment of
experiments onto common infrastructure, GENI re-imagines the methodology of both network system
research and of potential early deployments and evaluation. It enables repeatable experiments
on large, complex, networked systems At scale demonstrations of transformational ideas
increases the opportunity for significant socio-economic impact.

At the start of the GENI program it was not clear that GENI was technically feasible. An early major goal was to show
its feasibility. To this end, the GPO started a series of rapid, community-created prototypes via “spiral development”
so that hands on experience could drive its evolution. Each GENI spiral is 12 months long, and aims to drive down
specific technical and programmatic risks. This proposal supports the engineering activities of spirals 4, 5 and 6.
The task categories associated with the proposal are:
a) Experiment support and direct aid to the research teams attempting to use the GENI prototype, including training
and tools.
b) Continued progress towards full Integration and Operations of the current GENI prototype including
deployment of GENI racks, enhancing the integration with Internet 2 and National Lambda Rail, additional
WiMax integration, campus expansion with the goal of having between 100 to 200 campuses “GENI enabled”, and
transition for 24x7 operations managed by Indiana University.
c) Formalization and documentation of the GENI architecture.
d) Systems Engineering work including security analysis of the GENI infrastructure, instrumentation and
measurement tools and infrastructure, and subcontract technical management.

Broader Impact: The engineering process of building GENI has directly engaged the newest generation of
faculty in students in a large-scale systems project. The experience of building a large-scale system
is an educational opportunity that is providing direct benefit to the US computer research community. GENI
is already being used as an instrument for research. This proposal supports and broadens the availability
and usability of the research instrument.